Rural Systemic Initiatives in Science, Mathematics,and Technology Education - RSI: Fort Peck Community College Rural Systemic Initiative

The proposers plan to implement the Improved Student Performance model of school reform, developed by the Ventures Education System Corporation (VESC), in the reservation schools. This model was chosen by the teachers and administrators of the participating districts. Supporting the Ventures implementation, as well as the other objectives, the project leaders plan to conduct professional development for in-service teachers, and include pre-service student teachers in the activities as well. The project will also provide modest funding for extracurricular content-focused activities for students, and to better involve parents, as well as contracting for services to increase the cultural content in the curriculum.